Problems in Complex Analysis

DMS 0400614

PI: John -Erik Fornaess

University of Michigan

Problems in Complex Analysis

ABSTRACT

The investigator plans to continue his research in complex analysis.
This has two parts, several complex variables and complex dynamics.

The investigator has several graduate students who will perform research on and write their Ph.D theses on projects related to the proposal. His current students are Alina Andrei, Krastio Lilov, Han Peters, Feng Rong and Marie Snipes. Two of these are females. As in the past, the investigator also plans to involve undergraduates in REU projects related to his research. The last two of these, from the summer of 2003 were Bryan Abbe and Ben Ward, two undergradutes from the University of Michigan.